Mathematical Biology: Nonlinear Dynamics of Oscillator Networks

Strogatz

Many populations of biological oscillators can exhibit remarkable
collective behavior. Despite differences in their individual
natural frequencies, the oscillators spontaneously synchronize to
a common frequency. Examples include chorusing crickets,
fireflies that flash in unison, and synchronous firing of cardiac
pacemaker cells. In several other branches of science and
technology, one would like to imitate nature's success at
designing networks that can synchronize themselves. For
instance, a semiconductor laser array generates greater
collective power when it synchronizes, but such phase-locked
operation is notoriously difficult to achieve in practice. The
PI and his students study the dynamics of oscillator networks,
using mathematical methods of dynamical systems theory,
bifurcation theory, and statistical mechanics, along with
numerical simulation. One project investigates a peculiar
mathematical phenomenon that was recently discovered in a model
of cellular oscillators communicating with one another through
the exchange of a signaling molecule. Three additional projects
venture into areas where oscillator theory has rarely been
applied, namely molecular genetics, stochastic analysis, and the
interplay of human behavior and civil engineering. The goal in
each case is to answer a mathematically fascinating question that
is important in the real world. Specifically: (1) How can one
build the analog of a multicellular biological clock, using
synthetic gene circuits? (2) Can a precise biological clock be
made by synchronizing many imprecise components, and is this what
takes place in our own circadian pacemakers? (3) What caused
London's Millennium Bridge to wobble on opening day? Each of
these projects enlists the collaboration of a top experimentalist
in the relevant field.

Networks of oscillators arise throughout science and technology
and are ubiquitous in nature: lasers arrays work better when they
oscillate synchronously, structures such as buildings and bridges
can be endangered by synchronous oscillation, synchronous firing
of cardiac pacemaker cells keeps hearts beating. The
investigator mathematically explores the behavior of networks of
oscillators, studying how networks synchronize themselves.
Benefits are expected for the understanding of how rhythmically
active cells work together in tissues and organs; for the
characterization of the potentially dangerous ways that crowds of
pedestrians can inadvertently cause footbridges to shake; and for
spin-offs to technological applications involving arrays of
oscillators, such as lasers, microwave oscillators, and
superconducting Josephson junctions. By training three graduate
students through the research opportunities offered here, this
project also helps to develop human resources that are vital to
our nation's success in science and engineering.